International Research Fellow Awards: Computational Fluid Dynamics Study of the Systemic to Pulmonary Shunt in Hypoplastic Left Heart Syndromes & Single Ventricles

9802808 Hsia The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty- four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support an eighteen-month postdoctoral research visit by Dr. Tain-Yen Hsia to work with Dr. Marc R. de Leval at the Great Ormond Street Hospital for Children in London, England. Dr. Hsia's work involves the application of engineering principles to medical problem solving, in particular, the computational fluid dynamics as applied to cardiovascular physiology. For this project, he will apply computational methodology to obtain quantitative solutions of the three- dimensional flow characteristics in the hypoplastic left heart syndrome. This study will provide the groundwork for engineering methods in the treatment of any congenital heart disease. The Great Ormond Street Hospital is the only place equipped with the clinical experience and engineering expertise required for this study. Dr. de Leval has gathered data for this work and has perfected the modeling. The engineering facility, in collaboration with Dr. F. Migliavacca of Politecnico de Milano in Italy, has been designed to provide a seamless operation of the numerical simulations. Dr. de Leval is an internationally known expert in the repair of congenital heart defects and has led a team of international experts using sophisticated engineering principles to examine the fluid dynamics in complex congenital heart defects and those same defects after repair. ***